High Performance Stand-Alone Computer

This proposal will provide a computing facility to support the computationally intensive research efforts being undertaken by groups working on the structure function relationships of biological molecules and their assemblies. These research efforts include x-ray crystallographic studies of proteins and macromolecular assemblies, solution structures of proteins and polypeptides by NMR spectroscopy, computational simulation of biomolecular behavior using quantum mechanics, molecular mechanics, and molecular dynamics, molecular modeling of macromolecular interactions using computer graphics and computational analysis and methods development in molecular graphics and computational geometry. This instrumentation will greatly enhance the advancement of research involving the structures and functions of biological molecules and their assemblies. Support is recommended.